CISE Postdoctoral Program: Parallel Programming Archetypes for Scientific Computation: The MetaTevt Project

9503966 Gannon The focus of this work is to apply the concept of program archetypes to the design of an Internet based electronic textbook on parallel programming techniques. An archetype is an abstraction that captures the common structural, computation, and communication features of a set of algorithms. This concept, when embedded in an interactive hypertext environment, provides a new approach to teaching about parallel programming as well as a software engineering foundation for deriving new parallel programs from existing applications. The archetypes work will be expanded to include new areas of application study, including sparse matrix computation in adaptive finite element problems as well as parallel algorithms in computational cosmology. A second aspect of this project is to help integrate the work of these application scientists and of the Indiana MetaText research team that is building electronic textbook software. The goal is to build a MetaText archetype encyclopedia for parallel programming. ***